Improvement in Engineering Education through Computer Aided Design and Drafting

This project is to modernize and strengthen the civil engineering program with the introduction of computer-aided design and drafting. The system will be used in varying degrees in different courses ranging from basic technical drafting to courses in structural mechanics. The software will give the students the opportunity to use state-of-the-art techniques in the calculation and design of structural building systems. Finally, the laboratory will support the surveying courses eliminating many of the hand calculations now required.